Human Capital and Wage Inequality: Analysis of Recent Changes

In sharp contrast to the past, the American economy has experienced stagnation in the growth of average, real wages over almost two decades now. This stagnant growth covers an equally unprecedented divergence in the trend of real wages between high and low wage earners, which became apparent in the 1980's. The more skilled and educated workers continued to experience significant growth in real wages, while wages of the less educated and skilled remained the same or even declined. Consequently, as the average standard of living has barely increased in almost two decades, wage and income inequality has risen. Looking at this situation form the vantage point of the labor market, two basic hypotheses emerge to explain this growing income inequality. One is that the growth of information and new technologies and the globalization of economic activity has led to increased demand for a well educated and flexible work force. The other is that there is a growing gap between desired labor force quality and its actual supply, and that the quality of worker performance may have actually deteriorated. The purpose of this research is to analyze earnings inequality from 1967 through 1990 using micro data from the Current Population Survey in order to shed light on which hypotheses or combination explains the increase in earnings inequality. Annual changes in wage inequality of men will be studied by means of human capital analysis. The exhaustive and computable factors in this analysis are: (1) changes in levels and dispersion of human capital across workers; (2) changes in rates of returns on human capital investments; and (3) changes in dispersion of rates of return. The analysis also distinguishes between effects of schooling and of job market investments, as well as between annual and life-time inequality. A more complete understanding of the developments of and prospects for earnings inequality requires the analyses of supply responses to changes in the wage structure and in job market investment costs. An attempt will also be made to identify, directly or indirectly, obstacles to supply adjustments which may affect the future course of earnings inequality.